Concurrency and Distributed Systems

Investigations will continue into the use of formal methods for developing concurrent and distributed programs, particularly programs that must exhibit fault-tolerance and satisfy real-time constraints. The research will concentrate on assertional methods. These methods allow a program to be understood in terms of a small number of static relations based on its text, rather than in terms of possible executions.